Engineering Research Equipment Grant: CAD Tools for VSLI Research

The equipment purchased under this grant is for the design of integrated circuits that contain both analog and digital subsystems. The research includes the construction of tools for building the libraries of circuits that can be assembled into analog/digital chips, and analysis and design of analog neural network chips.